Clinic on the Meaningful Modeling of Epidemiological Data

Mathematics and numerical simulations are essential tools in infectious disease control, enabling decision-makers to explore policies prior to implemention, to interpret trends, and to predict emerging threats. The Clinic on the Meaningful Modeling of Epidemiological Data (MMED) will be held in Cape Town, South Africa, from May 24 to June 4. It brings together mathematicians, statisticians, population biologists, and epidemiologists to engage with meaningful questions about infectious disease dynamics by integrating mathematical models with epidemiological data. The Clinic will train young researchers in biomathematics and epidemiology, stimulate interdisciplinary collaborations between researchers in public health, infectious diseases, epidemiology, biostatistics, and mathematics, enhance collaborations between researchers from North America and Africa, and lead to collaborative research projects that combine models and data to increase understanding of epidemiological processes and to inform public health decision-making. Lectures will be made publicly available through a website allowing for self-instruction by those unable to attend the Clinic and incorporation into teaching materials for other courses.